How Do Faults Capture Fluid Flow During Initial Deformation of a "High Permeability" Accretionary Prism?

Thid project will investigate the interrelationship of deformation and fluid expulsion along the Oregon margin and specifically examine the transition from stratigraphically controlled to fault controlled flow; existing measurements ofintergranular permeability provide a basis for quantifying fluid flow along stratigraphically-controlled conduits; evaluation of the effect of faults will require direct measurements of permeability in fault rocks as well as estimation of permeability along larger-than-sample size fracture networks. They will sample a canyon wall what exposes a fault that is venting fluids; they will determine the variation of permeability, porosity, grain size, cementation state, and structural fabric development across the fault zone.